Modern Optics Equipment for Science and Engineering Majors

9351543 Quon A modern optics laboratory course has been developed with state-of-the-art optical technologies including lasers, photodetectors with computer interfacing, fiber optics, optomechanical fixtures, and ray tracing optic computer software. The course has weekly laboratory classes which make use of small group mentoring activities. ***